Phylogeny and Revision of the Hawaiian Carabidae: Platynini Beetles

Field work necessary for taxonomic revision of the Hawaiian carabid beetles (Coleoptera: Carabidae) is underway, permitting accurate characterization of the fauna and establishing baseline diversity data for use in monitoring the status of endangered habitats. Hawaiian species of tribe Platynini will be revised, with over 20 new species described among the over 135 species. Identification keys and illustration permitting identification of all Hawaiian carabid genera and Hawaiian species of Platynini will be developed. A cladistic hypothesis of platynine species based on parsimony analysis of a comprehensive set of adult morphological characters will be used to investigate speciation patterns in the group. Outgroup analysis using Pacific and Asian outgroups allows identification of the source of Hawaiian platynines. Characters are examined in the context of the cladistic hypothesis, providing information on their underlying evolutionary basis. A comprehensive survey of adult morphological characters will be undertaken for Hawaiian species of tribe Psydrini, the second and other major radiation of Carabidae on the islands. This survey forms the basis for a cladistic hypothesis for the group, and permits parallel tests of evolutionary process as accomplished for Platynini.